Research Initiation: Compilation of Logic Programs for Multiprocessor Computers

Knowledge-based techniques are being used to solve an increasingly wide range of complex problems and this has resulted in higher performance demands for symbolic computation. Researchers have therefore shown great interest in exploiting the inherent parallelism in logic programming languages such as Prolog. Among the many approaches which have been proposed, DeGroot's Restricted And-Parallelism (RAP) execution model seems particularly promising. This model is notable in that it achieves a great deal of parallelism automatically, i.e., without explicit commands from the programmer, yet the run-time support mechanisms have low overhead. This is accomplished by compiling programs into special control expressions, called Execution Graph Expressions (EGEs), which initiate goals on the basis of tests on program variables. Research on the RAP model has focused primarily on the problem of implementing EGEs efficiently on multiprocessor computers. The research proposed here will focus on the complementary problem of compiling clauses into EGEs. A clause is first converted into a graph- based computational form which achieves Maximal And-Parallelism. This graph is then gradually transformed into an EGE, potentially at a loss of parallelism, using two rewrite rules over a hybrid execution model. A specific compilation algorithms for Prolog using this framework will be designed, developed and evaluated.